Efficient Algorithms for Large-Scale Linear and Nonlinear Finite Element Computations with Applications to Thin Shell Structures

Coleman 9704509 The investigator and his colleagues focus on the efficient numerical computation of global solutions of problems of nonlinear elastostatics in a high-performance computational environment. Particular attention is paid to the global post-critical behavior of symmetric imperfection-free elastic shell structures --- the analysis of which has great significance in understanding the large deformation response and ultimate collapse scenario of realistic engineering structures. A major theme of the work is to exploit the natural parallelism, via group theoretic techniques, in an important class of engineering problems characterized by underlying symmetries. They also investigate the use of automatic differentiation software in the context of those problems. Finally, they study the effectiveness of symmetry-motivated preconditioners, within the context of Krylov iterative subspace methods, for a class of ``almost-symmetric'' problems in structural mechanics. Due to their high strength-to-weight ratios, thin shell structures have been used extensively in aerospace, civil, mechanical and nuclear engineering applications, e.g., dome roofs, aerospace vehicles, pressure vessels, containment vessels, etc. Yet the ability of engineers to predict the ultimate failure of such systems has heretofore been more of an art than a science (relying heavily upon costly experimental verification -- see "Computerized Buckling Analysis of Shells", by D. Bushnell, Martinus Nijhoff 1985). The investigators combine new mathematical ideas of symmeytry and nonlinear analysis with high-performance computing methodology to analyze such systems efficiently and systematically. A long-term goal is to provide engineers with useful tools for the sytematic analysis (and ultimately better design) for this important class of structures. Funding for the project is provided by the Computational Mathematics program and the Office of Multidisciplinary Activities in MPS and b y the New Technologies program in CISE.